U.S.-Hungarian Cooperative Science Program Site Visits

The primary objective of site visits conducted jointly by representatives of the Hungarian Academy of Science and the National Science Foundation is to observe the scientific work and interview researchers supported by grants awarded under the U.S.-Hungary Cooperative Science Program. Laboratories to be visited represent the fields of chemistry, neurobiology and physics and are located at two institutions, the University of North Carolina and the College of William and Mary. While on-site, official representatives will seek to determine if overall program objectives are being met through shared research experience in designated areas of strong mutual interest and competence.